Fourth Conference on the Neurobiology of Learning and MemoryOctober 17-20, 1990, Irvine, California

This proposal requests support for the Fourth Conference on the Neurobiology of Learning and Memory, to be held at the Univ. of California at Irvine. The participants at this conference will examine learning-induced changes in the nervous system. The keynote speakers and participants include some of best known researchers in the field of learning and memory research. In general, the proposal is of a high quality, novel, integrative and should promote research and critical analysis of ideas in this community.